Low Power Microelectronics

Eugene B. John ECS-9714993 Professor John will explore new research opportunities in the area of low power microelectronics, specifically focusing upon the design and VLSL implementation of low power microelectronic systems.